Development of an Undergraduate Software Engineering Laboratory for Computer Science Majors at Grambling State University.

The Department of Mathematics and Computer Science at Grambling State University has recognized the changes that have already occurred as well as those that are coming as a result of the new developments in Software Engineering. In light of this, the University has supported the development of a Software Engineering Curriculum and Laboratory. This laboratory serves as a practicum center of Software Engineering core courses, where the curriculum is designed as per the recommendations of lEEE. The laboratory helps Software Engineering majors graduated from this program with a thorough knowledge of the concepts as well as practical experience. This project provides funds for the partial support of implementing the Software Engineering Lab, to purchase the IBM RlSC-6000 systems, with the university and IBM jointly supported the remainder.